Forcing, large cardinals, and connections to descriptive set theory

This project seeks to advance our knowledge of structural properties of the universe of mathematics. Knowledge of mathematics comes through logical deduction from axioms. By a seminal 1930s result of Goedel, this knowledge is inherently incomplete, in the sense that there are questions that can never be answered, either positively or negatively, from the standard axioms. Indeed, further work using the method of forcing introduced by Cohen in the 1960s led to the discovery of a very wide array of such questions. Set theorists research these questions, to see how they relate to each other, and how they relate to a backbone of additional axioms, called large cardinal axioms, that assert strong reflection properties for very large sets. This project explores some of these questions, and the effect of large cardinal axioms on structural properties of sets of real numbers. Three specific subjects are investigated. The first involves a property of cardinal numbers, called the tree property, that can be viewed as a remnant of a large cardinal axiom. This property has been studied since the 1970s, and work on it has been driving substantial developments in the area of consistency proofs. The second involves the interactions between combinatorial properties of the line of real numbers, and the size of the set of real numbers. In both these aspects, proofs that the relevant principles can hold use large cardinal axioms. The third uses canonical models for large cardinal axioms to prove structural properties of definable sets of real numbers. The overall goal in all cases is to develop a better understanding of what is true, and what is possible, in the universe of mathematics. A further goal is the training of graduate students in the methods of mathematical research, present and future. An important part of preparing for future methods is the use of AI. While the mathematical questions addressed by this project are currently beyond the reach of AI, students working on the project use AI tools as sounding boards for their ideas. The dialogue with AI helps the students speed up their learning and prepare for a future where AI may have a more prominent role in mathematics.

This project deals with three interrelated areas in set theory: (i) the tree property; (ii) consistency proofs at the level of the real numbers line with large continuum; and (iii) uses of fine structural inner models for Woodin cardinals in descriptive set theory. In connection with (i), the project is particularly concerned with forcing the tree property at regular cardinals, above the first uncountable cardinal, on increasingly large intervals. The motivating goal is to see whether the tree property on some of these cardinals can prevent the property from holding on other cardinals, or whether it is consistent that the tree property holds at all these cardinals. We are very far from an answer to this question, but there has been some impressive progress in recent years. This project seeks to build on this progress in order to push the boundaries further, and at the same time search for simplified proofs of existing result in the hope that these would be more amenable to further expansion. In connection with (ii), the project is particularly concerned with some of the central structural consequences of the proper forcing axiom (PFA), for example Todorcevic's open coloring axiom and p-ideal dichotomy. This project seeks to determine whether these principles are consistent with large continuum, meaning larger than its size under PFA. The ultimate goal is to develop a robust framework of consistency results with large continuum or determine actual mathematical obstacles for such frameworks. In connection with (iii), the project is particularly concerned with developing inner models theoretic proofs of results in the descriptive set theory of the real line under determinacy. It is expected that an inner models theoretic approach would be necessary to solving some of the more intractable open questions in this subject, and indeed this approach has already seen some success with several questions.